IUCRC Phase I Stevens: Center for Research toward Advancing Financial Technologies (CRAFT)

This project establishes the Center for Research toward Advancing Financial Technologies (CRAFT) devoted to research on fintech, the conjunction of finance and technology. The fintech industry is growing as a result of advances in computer science coupled with practical advances in computing hardware, and it affects almost all other industries in the broader economy. The vision of CRAFT is to bring together industry partners, academic researchers, federal agencies, and students to conduct and advance interdisciplinary fintech research, innovation, and workforce training in support of new products, services and ventures.

CRAFT at Stevens Institute of Technology will focus on financial technology through combining its existing fundamental technological research with finance and management knowledge. The technological research will draw from artificial intelligence, information systems, quantum computing, distributed ledgers and associated smart contract technologies. With respect to each of these technologies, cross-disciplinary teams will work with industry to define challenges and search for solutions. The site research will strive to discover technologies and processes that can be used to help industry participants build new services.

CRAFT will have a broad impact on the economy by helping to better understand the benefits and risks of potentially disruptive technologies. The research projects will allow policy makers and industry participants to better understand and manage risks, thus reducing the possibility of unintended consequences and disruptions. Since new technologies are often associated with innovation and growth, CRAFT may contribute to a more vibrant economy. With respect to education, the projects will lead to technologies and processes that can be used in education and training. The proposed workshops for high school students will broaden participation in all disciplines.

The center repository will be hosted at Stevens library. The data, code, and the results of projects will be well organized and maintained on the CRAFT server according to the Center data management policy for at least ten years or longer. After the training modules and software packages are documented and tested, they will be released and made available through popular public code hosting services such as GitHub.